Pattern Formation in Biology, Dynamics and Computer Graphics

Gromov 9732734 The investigator organizes an international conference at Institut des Hautes Etudes Scientifiques to study pattern formation in biology, mathematics, and computer graphics. Collaborations will lead to new tools for analyzing, computing, and visualizing patterns. Symmetry and structure arise often in nature, and their presence is often betrayed by patterns. Mathematicians, biologists, and computer scientists approach these common problems from different perspectives. One goal of the conference is to stimulate synergistic interchanges about these problems between these different disciplines. The conference aims to foster a greater understanding of patterns, their significance in biological areas, and how they can be handled mathematically and computationally.